Undergraduate Laboratory for Computer Software Engineering

The focus of this project is the development of an undergraduate software engineering laboratory which utilizes the most advanced techniques available. This includes CASE tools, automated project management, object-oriented programming, distributed project development and others. The purpose of the laboratory is to provide hands-on experience for undergraduate students. Potential applications areas for students to investigate include embedded real time systems. A cluster of SUN Microsystems SPARC workstations and Interactive Development Environments' Software through Pictures are to be acquired. This project establishes a state-of-the-art laboratory for software engineering which is badly needed at the undergraduate level. Such laboratories will address the national need for well trained software developers.